Doctoral Dissertation Research: Exploring the Effects of Stereotype Threat in Police Encounters: Why Innocent African Americans are at Risk of Being Targeted as Suspects

This research tests a novel social psychological explanation which focuses on police-citizen interactions. Specifically, in police encounters, innocent Blacks might be concerned about being judged unfairly because of stereotypes depicting them as prone to crime. Such "stereotype threat" produces anxiety and arousal, leads individuals to manage their behavior, and increases demands on cognitive resources. Ironically, however, these correlates produce the same nonverbal behaviors that police use to distinguish liars from truth-tellers. Thus, threatened Blacks might be more likely than non-threatened Whites to behave in ways that police perceive as suspicious. The researchers will test whether stereotype threat and its correlates explain differences in the frequency with which Blacks and Whites engage in deceptive-looking behavior. Pre- and post-tests will assess whether a staged police encounter differentially affects Blacks' and Whites' feelings of stereotype threat, anxiety, physiological arousal, self-regulation, and cognitive load. Videotapes of the encounter will be coded to determine whether participants engaged in nonverbal behaviors commonly perceived as deceptive (e.g., gaze aversion, fidgeting).

The unwarranted disparate treatment of different racial groups can undermine the legitimacy of the police and prevent them from being effective. Findings from the current research will inform future research on curbing Blacks' experiences of stereotype threat in police encounters and preventing effects on nonverbal behavior from translating into racial disparities in the criminal justice system.